REU Site: Research Experiences for Undergraduates in Computer Vision

This project will support 10 students to work on a variety of projects in computer vision utilizing researchers from the University of Central Florida, the University of South Florida, and Stetson College. The student participants engage in a intensive 12 week summer program which includes a 6-week course in computer vision, followed by two short courses in programing, followed by 4 weeks of research. The research component is continued throughout the following academic year. Students work in a variety of areas such as combining stereo and shape from shading, neural controllers for robotic arms, range image aspect graphs, and modeling of non-rigid object motion. //